CEDAR: Bear Lake Observatory--A Mid-Latitude CEDAR Facility for Middle and Upper Atmosphere Studies

The observations of the middle and upper atmosphere that can be made at Bear Lake Observatory are vital to the CEDAR objectives of studying coupling among different regions of the atmosphere. Mid-latitude observations provide a very different perspective of coupling compared to those made in the auroral zone and polar cap or in the equatorial region. There are two categories of problems that are particularly amenable to study from a mid-latitude site, and these are being pursued from BLO. The first studies atmospheric processes where the influence of magnetospheric processes are minimal. The other studies extensions of magnetospheric influences into the mid-latitude region, which may occur from an expansion of the auroral region towards the equator or from enhancements of ring-current effects extending poleward.